Topics in Pseudonoise Sequence Design and Error-Correcting Codes

In this project, algebraic techniques are in use two to tackle
two classes of problems related to improving the throughput and/or
reliability of a communication link are under study. The first class
of problems under study is the design of long and efficient
error-correcting codes. Such codes are of interest as longer
error-correcting codes tend to ``average'' out the noise and hence
provide better performance. The second class of problems relates
to the design and analysis of families of signature sequences that are
used to distinguish between the signals of different users in a
multi-user environment. Examples of multi-user environments include
Code Division Multiple Access (CDMA) cellular and personal
communication systems. More details on example problems drawn from
each class are provided below.

Since the early 80's, the promise of algebraic geometric (AG) codes
has been the delivery of a sequence of error-correcting codes of
increasing length whose asymptotic performance exceeds the
Gilbert-Varshamov bound and for which efficient and practical
encoding and decoding algorithms are available. Computationally
efficient decoding algorithms for AG codes are now available and there
now exist explicit descriptions of algebraic curves of the type
required to construct these long codes. Construction of good codes on
these curves requires the determination of a basis for a certain type
of vector space of functions defined on these curves. The
investigators study efficient methods of generating such bases. The
use of novel algebraic geometry techniques to generate pseudo-random
sequences is an example of the type of problem belonging to the second
class. The investigators examine methods of generating sequences
having pseudo-random properties such as low correlation and large
linear span. Also under investigation are more efficient means of
assessing the performance of pseudo-random sequences in a multi-user
setting, for example, more efficient means of determining the minimum
Euclidean distance between adjacent multi-user signals. The
performance in a multi-user setting, of a a specific sequence family,
known as family S(2) and previously co-designed by the PI is also
under study.